Networks for Science and Mathematics Instruction

This research deals with the improvement of secondary school education in
science and mathematics. Previous research by ourselves and others has
shown the value of engaging students in interactive self-assessments and
problem solving while learning science and mathematics. However it has
proven difficult to disseminate these techniques to teachers for a
variety of reasons. A new technique of dissemination will be attempted,
using the World Wide Web (WWW) and internet technologies. The technique
also ties into state and nationwide movements toward assessments to
achieve and maintain standards. In order to assist teachers in preparing
students for these assessments we will place interactive problem solving
activities on the WWW. These questions and activities permit student
self-assessment of progress and teacher assessment of class progress while
students are learning before the students take the "standards"
examinations. The exercises themselves will be developed by
highly experienced teachers, who will also be available by email to
support classroom teachers using the WWW based learning activities. The
technique will be tested by developing exercises that are coordinated
with the State of Washington's Essential Academic Learning Requirements,
which provide the basis for the State of Washington assessments for
science and mathematics. The results will be evaluated by comparing the
statewide assessment scores obtained by students and classes who have or
have not used the WWW based learning activities.